Mechanisms of Incongruent Reduction

Chemical reactions that convert a solid oxide into new fluid and solid
products with compositions that differ from the initial oxide are
considered to be "incongruent" (e.g., incongruent melting, incongruent
dissolution). While some types of incongruent reactions are well
understood, the basic kinetic mechanisms by which oxides undergo
"incongruent reduction" with molten metals are not. The objective of this
research is to develop a fundamental understanding of the kinetic
mechanisms (rate-limiting steps, microstructural evolution) by which a
solid oxide undergoes incongruent reduction with a reactive metallic
liquid. In this work, the incongruent reduction of aluminum oxide in
contact with Mg-Al liquids (which involves the formation of solid magnesium
aluminate spinel) will be examined. Novel experiments with in-situ x-ray
diffraction will be used to track, in real time, the formation of spinel on
alumina surfaces immersed under molten Mg-Al layers. The kinetics of
alumina weight change upon immersion in Mg-Al melts will also be studied
under steady-state conditions. These kinetic measurements (phase change,
mass change) will be used along with microchemical and microstructural
analyses of the alumina/melt interface to identify the rate-limiting
step(s) of incongruent alumina reduction.
%%%
The rate of reaction between ceramics and liquid metals is of vital
importance for a number of advanced technologies, such as: 1) novel,
low-cost, reactive infiltration processing of ceramic/metal composites for
automotive applications (e.g., cylinder liners, brake components, bearing
sleeves), and 2) investment casting of advanced titanium alloys for
lightweight and strong structural components in aircraft. The purpose of
this research project is to develop a better fundamental understanding of
the mechanisms of reactions between solid ceramics and liquid metals, so
that the rate of such reactions can be better predicted and controlled.
This research will involve the use of state-of-the-art analytical equipment
to track the progress of such reactions in real time at interfaces between
solid ceramics and liquid metals.